The Role of Mago Nashi in Drosophila Development

In many organisms early determinative events are established by the differential distribution of informational molecules(cytoplasmic determinants). In Drosophila,the distribution of these determinants is established by genes that make a strictly maternal contribution to the developing embryo. Drosophila serves as a model system for studying genes that produce these determinants and/or are involved in properly distributing these determinants within the embryo. The PI is studying Mango Nashi a maternal effect gene required both for the determination of the primordial germ cells and establishment of the anteroposterior axis of the embryo. The mago locus is novel in that mutations of the locus disrupt germ cell formation and are also capable of causing a replacement of anterior embryonic structures by posterior tail and abdominal structures. Double mutants between mago and alleles of loci crucial for delineation of the anteroposterior axis of the embryo will be used to better define the role of mago in specifying the anteroposterior axis of the embryo. Genetic isolation of new mago alleles and developmental analysis of thes alleles will provide information necessary for refining models dipicting the role of mago+ in early embryonic development. A molecular characterization of the mago locus will include: (a) identification of mago mRNA(s), and isolation and sequencing of cDNA clones representative of mago mRNA; and (b) determination of the distribution of the mago transcript(s) and protein(s) in oocytes and embryos. This combined analysis should significantly improve our understanding of mago+ function in early Drosophila development. Thus, these studies should provide insights into the mechanisms underlying germ cell formation and the establishment of positional information in the early embryo.